Collaborative Research: Expeditions in Computing: The Science of Deep Specification

In our interconnected world, software bugs and security vulnerabilities pose enormous costs and risks. The Deep Specification ("DeepSpec", deepspec.org) project addresses this problem by showing how to build software that does what it is supposed to do, no less and (just as important) no more: No unintended backdoors that allow hackers in, no bugs that crash your app, your computer, or your car. "What the software is supposed to do" is called its specification. The DeepSpec project will develop new science, technology, and tools--for specifying what programs should do, for building programs that conform to those specifications, and for verifying that programs do behave exactly as intended. The key enabling technology for this effort is modern interactive proof assistants, which support rigorous mathematical proofs about complex software artifacts. Project activities will focus on core software-systems infrastructure such as operating systems, programming-language compilers, and computer chips, with applications such as elections and voting systems, cars, and smartphones.

Better-specified and better-behaved software will benefit us all. Many high-profile security breaches and low-profile intrusions use software bugs as their entry points. Building on decades of previous work, DeepSpec will advance methods for specifying and verifying software so they can be used by the software industry. The project will include workshops and summer schools to bring in industrial collaborators for technology transfer. But the broader use of specifications in engineering also requires software engineers trained in specification and verification--so DeepSpec has a major component in education: the development of introductory and intermediate curriculum in how to think logically about specifications, how to use specifications in building systems-software components, or how to connect to such components. The education component includes textbook and on-line course material to be developed at Princeton, Penn, MIT, and Yale, and to be available for use by students and instructors worldwide. There will also be a summer school to train the teachers who can bring this science to colleges nationwide.

Abstraction and modularity underlie all successful hardware and software systems: We build complex artifacts by decomposing them into parts that can be understood separately. Modular decomposition depends crucially on the artful choice of interfaces between pieces. As these interfaces become more expressive, we think of them as specifications of components or layers. Rich specifications based on formal logic are little used in industry today, but a practical platform for working with them will significantly reduce the costs of system implementation and evolution by identifying vulnerabilities, helping programmers understand the behavior of new components, facilitating rigorous change-impact analysis, and supporting maintainable machine-checked verifications that components are correct and fit together correctly. This Expedition focuses on a particularly rich class of specifications, "deep specifications." These impose strong functional correctness requirements on individual components such that they connect together with rigorous composition theorems. The Expedition's goal is to focus the efforts of the programming languages and formal methods communities on developing and using deep specifications in the large. Working in a formal proof management system, the project will concentrate particularly on connecting infrastructure components together at specification interfaces: compilers, operating systems, program analysis tools, and processor architectures.